A Microstructual Design Study of Ceramic Composites Using Computational and Experimental Methods

The proposed investigation will utilize a recently developed analytical technique (homogenization theory) to design composite microstructure for specific loading histories, such as compression, torsion and multi-axis loading histories. These analytical techniques are novel and allow determining both the microstructural and macroscopic response of fiber-reinforced ceramics to multiaxial loading histories. The approach allows the analysis of complex composite systems, including those with 3-D fiber architectures. Moreover, the approach can be used to determine the microstructural and macroscopic response of composites at elevated temperatures, where non-linear behavior may be present. The philosophy of the proposed work is to identify specific microstructure (including requirements for interfacial bonding) that will optimize the fracture resistance of fiver-reinforced composites for various static and cyclic loading histories. The development of fiber- reinforced ceramics is still at a very early state; thus, the proposed investigation has the potential to significantly reduce the development time for these composites.